Superconducting Switches using High Tc Superconducting Thin Films

High TC superconducting devices are of considerable interest to both research and development community. My interest is in applying high TC superconducting for device applications. This proposal outlines the development of superconducting switch for microelectronic applications. At least four technological aspects of high TC devices will be investigated in developing a switch. The areas to be used studied include contacts to superconducting thin films, patterning and fabrication of weak links. The devices will be fabricated and evaluated in the Microelectronics Research Laboratories of University of Colorado at Colorado Springs. The proposed device has significant potential in implementing high speed digital logic gates, non-linear switch for noise descrimination in digital circuits, limiters, mixers, magnetically and optically controlled switches.